Function of Yeast Clathrin Heavy and Light Chains

9305287 Lemmon The clathrin light chains (LC's) have been implicated in various aspects of clathrin assembly and disassembly; however, there is little in vivo evidence supporting any of these roles for the LC in clathrin function. In this laboratory, preliminary in vivo evidence has been obtained that the LC is important for the stabilization of the clathrin heavy chain (HC) in Saccharomyces cerevisiae. This is a novel function for LC's, which will be examined in more detail by taking advantage of the moleuclar genetic approaches available in the yeast system. The specific aims are to: 1, examine the importance of the clathrin light chain in stabilization of the heavy chain; 2, determine whether overexpression of HC's can suppress the phenotypes caused by LC- deficiency (if true, this would suggest that HC's can function in the absence of LC's); 3, determine whether LC's are involved in trimerization of HC's; and 4, localize the region of the LC that is required for HC stabilization. %%% In eukaryotic cells, clathrin-coated membranes are involved in the selective transport of receptors during endocytosis and sorting of newly synthesized secretory proteins at the trans region of the Golgi apparatus. The clathrin triskelion, which forms the polyhedral lattice found in clathrin-coated membranes, is composed of three heavy chains of approximately 180 kD and three light chains of 25-30 kD. Much information concerning the components that regulate clathrin-mediated vesicular transport has come from in vitro biochemical analysis or studies in animal cells. In this laoratory, clathrin is being studied in the yeast Saccharomyces cerevisiae because of the unique opportunities to apply molecular and genetic methods to the analysis of vesicular transport. Suppression studies analyzing the effect of overexpression of clathrin light chains in yeast suggest that light chains are important for stabilization of clathrin heavy chains. This function for light chains, whi ch has not previously been documented, will be analyzed in vivo using the molecular and genetic approaches available in the yeast system. These studies may lead to practical applications in the area of biotechnology, particularly in terms of genetically engineering yeasts or other cell types for improved secretion characteristics. ***